Photoinduced Electronic Transport and Recombination in Disordered Semiconductors

This research will be directed at finding the theoretical foundation for transport and recombination of photoexcited charges in disordered systems such as amorphous and vitreous semiconductors, organic semiconductors and polymers. Competition between recombination and diffusion of nonequilibrium carriers and between radiative and nonradiative mechanics of recombination are central problems to this theory. The temperature dependence of charge transport and recombination is explored under conditions of low and high electric fields, low and high frequencies and different excitation intensities. The theoretical work will be tested against experimental data on amorphous semiconductors. ***